Physics Graduate Education for Diverse Career Options

9511716 Khoury This action will provide partial support for a meeting to study "Physics Graduate Education for Diverse Career Options", which will be sponsored by the American Association of Physics Teachers and the American Physical Society. The attendees will be mainly the chairs of physics departments from a broad range of universities and colleges. Other participants and speakers will come from non-academic and industrial enterprises that customarily hire Ph.D.'s in physics. ***